Mathematical Sciences Computing Research Environments

The Department of Mathematical Sciences at Clemson University will purchase workstations and a tape backup system. This equipment will support mathematical modeling and simulator development in the environmental areas of subsurface flow, transport, and hazardous waste remediation.